Theories of Electron Transfer and Transport and Vibrational-Energy Transfer

Professor Cukier is supported by a grant from the Theoretical and Computational Chemistry Program to perform research in statistical mechanics directed toward theoretical understanding of electron transfer and vibrational energy transfer. This research will provide fundamental theoretical insight into important chemical and biological processes which involve electron and vibrational energy transfer. Long distance electron transfer implies a crucial role for the intervening material between donor and acceptor in that there is a strong component of electron transport through the material. By a combination of analytic and simulation methods, Professor Cukier will explore the equilibrium and transport properties of an electron in various materials. The aims of the vibrational energy transfer studies are to predict these rates as a function of solvent density, from gas to liquid. In dissociation-recombination reactions, the role of solvent in driving electronic-curve crossing will be explored.